Tamely Ramified Langlands Correspondence

The investigator attempts to classify square-integrable tamely ramified
representations of split reductive p-adic groups G and their inner
forms, by means of homomorphisms from the tame Weil-Deligne group into
the dual group of G. This project is part of the local Langlands
conjecture for such groups. The representations are partitioned into
finite sets, called ``L-packets". The method is a p-adic analogue
of Lusztig's Jordan decomposition for finite reductive groups.
From a functorial point of view, the tame L-packets are bijective
lifts of unipotent L-packets for quasi-split groups and their inner
forms. Properties of the L-packets, such as formal degrees
and Whittaker models, will also be investigated.

Symmetry is an effective way to study mathematical and
physical objects. A Group is a collection of symmetries, and
Representation Theory is the study of how these symmetries manifest in
different ways. As a simple example, there is a group of sixty
symmetries consisting of permutations of five objects, and this group
also manifests as the sixty symmetries of an icosohedron, and of the
fullerene molecule. The investigator studies certain infinite groups of
infinite dimensional symmetries. In the past forty years,
mathematicians and physicists have guessed that there may be deep
relations between such symmetries and fundamental, as yet undiscovered,
properties of numbers. The investigator attempts to confirm part of
these conjectures, and make them more explicit.